Student Travel Support for the GEC2001 Conference

This award provides support for student travel to and participation in the 2001 Gaseous Electronics Conference. The conference is being held at Pennsylvania State University on 9-12 October, 2001. Part of the student activities at the conference will include the selection of a GEC Student Award for Excellence.